Industry/University Cooperative Research Center for Advanced Vehicle Electronics (CAVE)

ABSTRACT
EEC-9907749
JOHNSON

Increasing the efficiency of automobile engines while maintaining or reducing their hazardous emissions entails raising their operating temperature. One of the main barriers to raising the operating temperature, is the capability of relatively cheap and reliable electrical circuitry to operate at the additional 30 degrees.

A planning grant EEC-9902096 was awarded to Auburn University to determine the feasibility and viability of an Industry/University Cooperative Research Center for Advanced Vehicle Electronics. The Center's research agenda is:

1. Flip Chip on Laminate
2. Development of Lead-Free Soldier Alloys
3. High Temperature Electronics
4. High Density Connectors
5. Ball Grid Array Reliability